Mathematical Sciences: Newton's Method for Algebraic Varieties

The goal of this research is to develop and analyze an algorithm for the application of Newton's Method to the problem of finding points on an algebraic variety when the defining equations are known, and to apply the algorithm to aid research on problems in pure mathematics.